Ultracold Heteronuclear Mixtures

This project focuses on investigations of cooled and trapped atomic vapors composed of multiple atomic species. The work will begin with laser cooled and trapped atomic mixtures prepared in a novel multi-species magneto-optical trap. Four areas are emphasized: 1) photoassociation to create a source of ultracold heteronuclear molecules; 2) an investigation of different trap designs for trapping ultracold heteronuclear molecules; 3) a measurement of atom-atom, atom-molecule, and molecule-molecule scattering parameters; and 4) an investigation of the properties of Bose-Einstein condensates of complex systems. The experiments will be accompanied by theoretical investigations.